Symposium Support for the 259th American Chemical Society National Meeting, March 22-26, 2020, Philadelphia, PA

This award seeks funding to support conference expenses for graduate students, postdoctoral researchers, as well as junior and/or female faculty to participate in the symposium on Acoustically-Active Colloids for Imaging and Therapy at the 2020 National Meeting and Exposition of the American Chemical Society (ACS) in Philadelphia, PA. The symposium organizers are Eugenia Kharlampieva (University of Alabama at Birmingham), Andrew Goodwin (University of Colorado Boulder), and Jesse Jokerst (University of California, San Diego). The symposium will be open to all interested scientists/engineers actively working on topics related to acoustically-active particles for biomedical applications. NSF funding is requested specifically to partially offset the costs for young researchers including junior faculty, graduate students or postdoctoral fellows to attend the conference and present the results of their research efforts.